Object Lessons: Inquiries in Natural History for Elementary Schools

9911354
DOW

"Object Lessons: Inquiries in Natural History for Elementary Schools" is a natural history-based approach to teaching science. This approach introduces authentic objects and specimens into the classroom, providing a framework for extensive outdoor as well as indoor investigations, collaboration across grade levels in order to facilitate long-term investigations, exploring seasonal comparisons and building a data base of information that can support continuing schoolyard inquiries. Real objects are supplemented by accurate models, scientific drawings, photographs and written materials for children, together with suggested lessons and background materials for teachers.